RNA Viruses and the Advantage of Biparental Genomic Reccombination

The experiments proposed here will measure the rates of spread, patterns of infection, and fitness consequences of barley yellow dwarf infection in a natural plant host in the field. Dr. Kelly will test whether this viral disease causes an advantage for sex by either (1) more frequent infection of common genotypes, or (2) more frequent infection of "old" genotypes. The results will provide evidence of the evolutionary significance of sexual reproduction in relation to disease, and more generally elucidate the roles diseases play in favoring genetic and species diversity within communities. Of more practical significance, the proposed study will provide important data on the natural ecology of an economically important cereal virus, and provide clues for the development of suitable strategies of biocontrol of viral diseases in crop plants.